I-Corps: Translation Potential of a Diagnostic Decision Support System for Real-Time Detection of Life-threatening Brain Injury States

This I-Corps project investigates the commercial potential of brain monitoring software for novice-level stroke recognition in anesthetized patients. Approximately 35,000 anesthetized patients each year in the United States suffer a stroke during a medical procedure. Because such patients are unable to manifest symptoms of stroke, the physician is not alerted, and the stroke is subsequently left untreated. Untreated stroke in this setting results in unexpected and premature death, physical and cognitive disability, and great hardship to these patients and their families. Additionally, the total cost of these strokes is about $2.8 billion per year. Brain electrical activity monitoring during anesthesia would enable real-time stroke detection, but it requires continuous high-level-expert interpretation. The need for expert interpretation prevents the large-scale use of brain electrical monitoring for stroke. Software to enable novice-level brain monitoring during anesthesia removes the need for an expert interpreter and expands the use of brain wave monitoring. With its use, the physician is alerted to the presence of stroke the moment it occurs. By having the stroke recognized immediately, the patient can receive emergency treatment to relieve the cause of stroke. By quickly reversing the stroke, the patients will be spared the severe consequences of stroke including potential emotional hardship, disability, and death.

This I-Corps project utilizes experiential learning coupled with a first-hand investigation of the industry ecosystem to assess the translation potential of the technology. This solution is based on the development of the Correlate Of Injury to the Nervous System index calculated from electroencephalographic brain recordings. The index is a method of summarizing brain electrical activity from multiple sensors on the scalp into a single number that is calculated every 4 seconds. The number – which ranges from 0 to 100 – indicates whether there is an area of brain that has impaired electrical activity resulting from stroke. Like a pulse-oximeter (which is used to measure blood-oxygen content), index values between 90-100 are interpreted as normal, indicating a healthy brain without stroke. As the index decreases into values below 90, the clinician recognizes the potential presence of stroke. As values progressively decrease, the likelihood of stroke increases, such that a value below 70 almost certainly indicates the presence of life-threatening stroke. Additionally, the index generates a visualization which displays the area of brain affected by stroke.